Development of Conditionally Specified Statistical Models for Analysis of Environmental Studies

----------------------------------------------------------------------- Proposal Number: DMS 9816630 PI: Mark S Kaiser, Michael J. Daniels, Soumendra Lahiri Institution: Iowa State University Project: Development of Conditionally Specified Statistical Models for Analysis of Environmental Studies Abstract: The objectives of this project are to formulate flexible multivariate distributions having associated conditional distributions of varying forms, develop statistical models from these distributions, and assess the performance of such models in terms of their ability to describe and predict environmental variables. Such models are particularly attractive for application to problems that involve spatially dependent processes, such as concentrations of air pollutants and potentially toxic substances in terrestrial settings. These statistical methods will improve our ability to describe such variables at monitored locations and, in particular, produce accurate and precise predictions for unmonitored locations. Spatial and temporal averages of pollutants that result will provide better assessment of environmental exposures for use in models of human health impacts and ecological responses to environmental conditions.